The Fred and Lois Gehring Special Year in Complex Analysis

. Abstract of the proposed activity.

The Fred and Lois Gehring Special Year at the University of Michigan
2001/2002 is devoted to Complex Analysis, Complex Dynamics and their
interaction. There are several Experts in Complex
Analysis and in Complex Dynamics at the University of Michigan,
and in addition there will be several senior long-term visitors
and several junior faculty hired in these areas and a good number
of short term visitors. Also there will be two conferences highlighting
recent developments and bringing in experts from around the world.

2. Abstract of Proposed Research.

Many phenomena in nature and human society, such as the weather,
or the stock market, are chaotic and hard to predict and analyze. In
fact any time three or more entities interact, the behaviour tends to
have chaotic features as the interaction between any two of them is
constantly interfered with by the third and the effects of these third
person interferences accumulate and backfire. Large systems
are beyond our ability to calculate completely. One can only understand
with complete precision lower dimensional systems and then one can hope
to infer from these which phenomena can happen in larger systems.
Complex dynamics provides the low dimensional setting with the most
tools available for such analysis. The theory of complex analysis provides
powerful methods for complex dynamics. It is also exciting that complex
dynamics provides tools back to complex analysis. So getting these groups
together for an extended period should have strong impact on both areas.

One of the main tools in complex dynamics is (pluri)potential theory,
which is a key area in complex analysis. Using Green functions from
potential theory one can get invariant currents and measures for the
dynamics via the complex Monge ampere operator. A basic problem
here is that in some cases it is difficult to define this operator
due to the fact that one needs to multiply distributions. Kobayashi
hyperbolicity is another key concept. Invariant regions which are
Kobayashi hyperbolic gives rise to nonchaotic behaviour because iterates
are then a normal family. It is however difficult to decide which regions
in complex manifolds are Kobayashi hyperbolic. The best results on the
embedding problem for Riemann surfaces in C^2 use complex dynamical
techniques, but there are many open cases still. And these are only a
few of the topics that will be investigated by this huge group of
researchers